Collaborative Research: RESOURCE AND REPOSITORY: BROADER IMPACTS OF THE NSF-CMP PROGRAM

Non-technical abstract:
The National Science Foundation chooses the research that it funds based on Intellectual Merit (the potential to advance knowledge) and Broader Impacts (the potential to benefit society). Scientists recognize that the Broader Impact merit criteria as defined by NSF are essential for building the public support necessary for science to flourish. This project creates a website that will consolidate the wide range of broader impact activities in Condensed Matter Physics, a field that has had a transformative impact on society, leading to the development of transistors, computer memory and light emitting diodes (LEDs). By acting both as a resource and a repository, it will make the implementation of broader impact activities both more efficient and effective. The wide range of broader impact activities include scientific breakthroughs, patented inventions and start up companies made possible by NSF funding. It also features the work of scientists who are enthusiastic ambassadors for their field, giving public talks, increasing diversity, developing scientific curriculum for students and teachers, and inspiring the next generation to pursue careers in science.

Technical abstract: The Broader Impact merit criteria as defined by NSF are essential for building the public support necessary for science to flourish. Condensed matter physicists (CMP) have made transformative impacts on our society that are often invisible to the public. Communicating the societal benefits of our research is often a challenge because CMP consists of many independent research groups for whom effective engagement in the public arena is not necessarily a forte. Other broader impact activities, such as engaging K-12 students and teachers to increase scientific literacy and strengthen the workforce in the Science, Technology, Engineering, and Mathematics (STEM) fields, may be very effective; but are often isolated and short in duration. A recent workshop on broader impacts attended by PIs supported by the NSF Condensed Matter Physics Program, resulted in the formation of a committee to advance the broader impacts of the CMP community in ways that go beyond what an individual group can accomplish on its own. This project funds the first initiative from this committee, the creation of a website to increase the visibility of CMP and to make the implementation of broader impacts more efficient. The site has two sides, a public side for communication of exciting scientific discoveries and their enabling technologies to the broadest audience and a private side for communication about broader impact activities among condensed matter researchers.